Microwave Switch for High Frequency Pulsed Resonance Instrumentation

9361254 Armstrong The object of the proposed effort is to show the feasibility of providing RF energy control using a semiconductor switch. It is postulated that such a switch can be made by fabricating an array of high speed diodes on a semiconductor substrate which is placed so as to control the flow of RF energy. The proposed switch would be usable at a frequency of 140 GHz, switch at under 15 ns and handle peak and average powers of 100 W and 30 W respectively. The results of a successful program will enhance many times the sensitivity and resolution of pulsed resonance instruments. ***